Renewal of PSERC IUCRC Site at Iowa State University

This action renews activities at Iowa State University for the multi-university Power Systems Engineering Research Center (Pserc) headquartered at Cornell University for the two remaining years in the Industry/University Cooperative Research Centers (I/UCRC) Program. The Iowa State University has been an active participate in the PSerc I/UCRC and has participated in several activities including recruiting six new companies into the center. The investigators at Iowa State University have also been involved in several research projects that have been completed and several that are in progress.